Economic Development and Social Differentiation in a FarmingCommunity

In this project the researcher, a cultural anthropologist from Arizona State University, will complete research analyzing land distribution, income patterns, living standards, social status and political participation in an upland Philippine farming community. Data from this current study will be compared with information gathered in 1970-72. Wider processes of developmental change in the region will be related to local changes over this period of time. The project will clarify the developmental trajectories that Southeast Asian peasant communities travel under capitalist market conditions, with a particular focus upon conditions under which increasing social, economic and political differentiation is the outcome of development. This research will help us understand how such social differences sometimes create polarization between capitalist farmers and farm workers, and sometimes creates durable economically viable multi-strategy farm households. It is a small part in our general understanding of the causes of conflict in the developing world.